Resources for Supporting Lesson Study in Mathematics

Building on the work of the "Lesson Study Communities in Secondary Mathematics" project, this three-year initiative creates professional development materials that support secondary mathematics teachers in improving teaching and learning through lesson study. Resources include a lesson study course for teachers and a leadership guide for lesson study leaders and coaches. Together, these resources support school districts in launching a lesson study program with a strong mathematical focus, an emphasis on teacher learning within the lesson study model and support for building the local lesson study leadership needed to implement and expand a lesson study program.